Data Compression Techniques for Improving Memory Hierarchy Performance

Abstract:
This project is aimed at developing data compression techniques for
substantially reducing the data memory footprint of memory intensive
applications. We will study the behavior of a wide range of applications
to identify characteristics of data held in data structures by these
programs that can be exploited in carrying out data compression. We
will develop a suite of data compression transformations that will be
implemented by the compiler. Our goal is to develop data transformations
that can be applied to partially compressible data structures, that is,
data structures in which all the data is not compressible. This approach
will not only result in transformations that are widely applicable, but
also lead to techniques for applying them that are efficient. In particular,
instead of relying on complex compile-time analysis for proving their
applicability, we will be able to use simple value profiling techniques
to identify data structures that are mostly compressible and then apply
the transformations to them. We will develop data compression extensions
(DCX) to a RISC-style instruction set for efficiently manipulating
compressed data. In addition, we will also address other low level code
generation issues, such as impact of transformations on register pressure
and instruction cache behavior, which can have a significant impact on
performance.